A Second Workshop on Research Using the Seismic Strong Motion Array, Taiwan (SMART 1); January 1988

This award is to support a three day workshop for review of research results based on measurements of strong ground motion made by the SMART 1 array in Taiwan. SMART 1, installed in northeast Taiwan, with joint support from NSF and from Taiwan's National Science Council (NSC), is the first large digital array of strong motion seismographs specially designed for engineering and seismological studies of the generation and near-field properties of earthquakes. The high quality, digital ground motion measurements recorded by SMART 1 provide a useful resource for earthquake engineering research. Under this award, eight U.S. scientists will travel to Taiwan to review research results relevant to structural siting and geotechnical systems. Participation of scientists from Taiwan will be funded by the National Science Council of Taiwan. This workshop was approved at the 1987 annual joint staff meeting under the cooperative science program between the American Institute in Taiwan and the Coordination Council for North American Affairs.